Collaborative Proposal: How to Gel Oil (or Water) in an Immiscible Oil-Water Mixture: A Systematic Study of Phase-Selective Gelation

Everyone knows that oil and water do not mix. This award will study how one of these liquids can be selectively converted into a gel – a process that is termed phase-selective gelation. To induce such gelation, molecules will be synthesized that will find their way into either the oil or the water layer and then undergo ‘self-assembly’ there. Self-assembly implies that the molecules will spontaneously join and form structures – in this case, long fibers – with nanoscale sizes. In turn, the nanofibers will entangle with each other and thus convert the liquid into a paste-like material (with the consistency of ketchup or hair gel). This will be the first systematic study on phase-selective gelation. The insights from this award could help design new materials to clean-up oil spills or to remediate oil-contaminated ground water.

The focus of this award will be on the fundamental science behind the phenomenon of phase-selective gelation, and the goal will be to develop design rules connecting molecular structure, interfacial properties, and gel structure/rheology. A range of amphiphilic molecules will be synthesized and their ability to gel either the oil or water phase in a mixture will be studied. Key criteria for a molecule to be a phase-selective gelator are: (a) it should not emulsify the oil-water mixture; and (b) it should also not get appreciably solubilized in either of the phases. The hypothesis is that such gelation can be accomplished by striking the right balance of non-covalent interactions between the amphiphilic molecules such as hydrogen-bonding between the head groups as well as pi-pi and van der Waals interactions between the tails. The proposed research will also be integrated with educational, mentoring, and outreach activities at the collaborating institutions.